CPA-CPL: Exploring and Exploiting Heterogeneous Cache Sharing in Chip Multiprocessors Systems for Locality Optimization and Proactive Cache Management

The increasing problems of power, heat dissipation, and design
complexity have caused a shift in processor technology to favor
multicore multiprocessors. Along with that shift, the sharing of
memory hierarchy becomes deeper, heterogeneous and more complex,
causing cache contention, increased conflicts, and also, synergy
sharing. Without understanding the implications of this change,
current multicore systems suffer from considerable performance
degradation, poor performance isolation and inferior fairness
guarantees. The urgency of these issues increases as the degree of
processor-level parallelism increments rapidly.

Prior studies, mostly in areas of architecture and operating systems,
rely on simple heuristics to estimate cache requirement of corunning
programs; the inaccuracy and overhead limits their scalability and
effectiveness. This work tackles these challenges uniquely from the
compiler aspect by constructing predictive behavior models for
corunning processes, developing cache-sharing-aware program
transformations and loop scheduling, and combining the program-level
knowledge of programming systems with the proactive resource
management by runtime systems. Specifically, this work proposes
inclusive reuse signatures to characterize inclusive locality---the
memory behavior of corunning programs on shared caches, and
inter-thread affinity models to capture data locality among parallel
threads. It tackles the challenges facing the measurement, prediction
and exploitation of inclusive locality. The analysis opens new
opportunities for shared-cache optimizations by both compilers and
runtime systems. The PI develops a series of program transformations,
such as inter-thread memory reorganization and cache-sharing aware
loop scheduling, to increase inter-thread spacial locality and
ameliorate conflicts, contention and false sharing. For runtime
systems, this work invents proactive cache management which partitions
caches or schedules processes according to predicted inclusive
locality proactively, overcoming the limitations of current reactive
schemes on scalability, accuracy and effectiveness.